Use of High Performance Liquid Chromatography in the Biochemistry and Chemistry Curriculum

9451682 Healy The project will establish the HPLC method as a fundamental instrumental component in the biochemistry laboratory curriculum. The HPLC will be used for experiments involving peptide structure determination, conformational and kinetic analysis of small antibiotics, protein isolation and enzymatic active site analysis. Additionally experiments involving modern reverse-phase and chiral HPLC techniques will be incorporated into the second semester organic laboratory.